Calculus of Variations in L-infinity and Nonlinear PDE's

9972043
Barron

The areas of proposed study of this project involve the multidimensional
and vector valued analogue of optimization problems with essential
supremum cost functional. In particular it is planned to consider the
determination of the necessary and sufficient conditions under which such
functionals will possess a minimizer. The project will also study
homogenization problems involving these functionals and representation
theorems for the associated set functions. Variational problems involving
these functionals with constraints on the minimizers will also be
considered. The problems under study lead to very nonlinear equations.
The techniques to be used in this project will therefore be nonlinear
analysis involving dynamical systems, viscosity solutions for partial
differential equations, variational inequalities, and nonsmooth analysis.

The focus of this project is optimization of systems where one seeks to
minimize the worst that can occur. Examples where this is appropriate
include the following important problems: (1) Determine the shape of a
load bearing beam so as to minimize the maximum strains and stresses
over the length of the beam. In the past one designs the beam minimizing
the total average energy, but cracks may still occur. (2) Find a
chemotherapy regimen for treatment of cancer seeking to minimize the
maximum tumor load. This is much more realistic than minimizing the
average tumor load. (3) Minimize the maximum noise in a reflected radar
beam. (4) Determine a control which will steer a trajectory as close as
possible to a target. (5) Find a portfolio that will maximize the minimum
wealth over some time period. These are all examples of significant and
interesting problems in which the appropriate point of view is the worst
case scenario. They arise in medicine, engineering, economics, and many
other fields. Furthermore, the analysis of the worst case gives the designer
a benchmark on which to judge all competing designs.